Mathematical Sciences: Statistical Intervals

Hwang will work on two areas in statistics: a theory concerning the conditional analysis and a theory about prediction based on a measurement error model. In the first part of the proposal, the principal investigator proposes to examine the estimated confidence approach by applying it to the Fieller's problem and by relating it to Fisher's exact tests for contingency tables. The second part of the research will focus on construction of prediction intervals based on measurement error models, which arise in many applications. The examples that motivate the principal investigator in this research are about the prediction problems of compressive strengths of concrete based on nondestructive tests. The principal investigator will work on two areas: conditional inference and prediction. For the first area, Hwang shall determine which statistical procedures for evaluating the probability of a particular event can take advantage of lucky data better than others; in other words, which procedures work better conditionally. The event involved refers to whether a particular interval (based on data) covers some ratios of unknown parameters. In the second area, Hwang's focus will be on prediction by intervals, where the studies are more applicable to U.S. society. The aim of the research is to construct a prediction interval for the compressive strength of a wall, a bridge, or a building based on a nondestructive method such as pulse velocity of penetrating sound waves. Success of this project may help to determine, without destroying any part of the bridge, whether the bridge is weak enough that it causes concern.